MPS-Ascend: Elucidating the Design Rules of Green Fluorescent Protein

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). Pablo Unzueta is awarded a NSF Mathematical and Physical Sciences Ascending Postdoctoral Research Fellowship (NSF MPS-Ascend) to conduct a program of research and activities related to broaden participation by groups underrepresented in STEM. This fellowship to Dr. Uzueta supports the research project entitled " MPS-Ascend: Elucidating the Design Rules of Green Fluorescent Protein", under the mentorship of a sponsoring scientist. The host institution for the fellowship is Stanford University, and the sponsoring scientist is Dr. Todd Martinez.

The proposed work intends to use Quantum Mechanical/Molecular Modeling ab initio molecular dynamics to study the green fluorescent protein (GFP) chromophore in the protein pocket. A collaborative approach between experiment, theory and machine learning (ML) has the potential to provide novel insights into GFP. Finally, ML will be used to construct a generative model which uses refined theoretical and experimental data with a focus on human interpretability and physical/chemical intuition upon model interrogation. Successful implementation of the proposed work will result in the creation of a smartphone app that provides voice-controlled quantum chemistry, 2-D structure recognition and interactive 3-D models. A postdoc mentoring network for historically excluded persons will also be constructed that recognizes promising early undergraduates from local colleges to aid them along academic and professional tracks.